Traces, Singularities and K-Theory

Abstract

Award: DMS-0408993
Principal Investigator: Richard B. Melrose and Victor Guillemin

The principal investigators propose to study a variety of basic
questions relating analysis, differential geometry and topology
and especially concerned with the appearance of singular
phenomena. In various collaborations, they plan to study the
solvability properties of elliptic differential and
pseudodifferential operators on manifolds with singularities and
to calculate the topological obstructions, particularly through
K-theory, to invertibility. Jointly, and in other collaborations,
they also intend to continue the study of the propagation of
waves, typically in the form of singular fronts, on manifolds
with singularities and the relationship between these two
problems. Projects in Kaehler and symplectic geometry emphasize
moment maps for groups acting on these spaces and constructions
such as cutting, gluing, and reduction by groups of symmetries.

One of the features of several of these projects is the
expression of analytic objects on a global scale through the
differential topology of the underlying space. For example, many
geometric spaces carry versions of the equation describing wave
motion, and aspects of the shapes of the spaces are recorded in
the decay and scattering properties of waves on them. This work
tends to bring together various strands of research in
mathematics and physics, in particular quantization theory and
symplectic geometry, the study of spaces on which Hamiltonian
mechanics can be defined.